Mathematical Sciences: Group Theory and Formal Language Theory

This research is concerned with the connections between combinatorial group theory and the theory of automata and formal languages. The principal investigator will show that many combinatorial properties of groups, such as having an automatic structure or a rational growth function, can be characterized in terms of the corresponding Cayley group possessing a regular spanning tree with certain additional properties. Formal language theory is the theory of subsets of free monoids which are determined by certain kinds of machines. This research is concerned with the interactions of formal language theory and group theory. This work is important both in group theory and in theoretical computer science.